Studies of the Earth's Deep Interior

9405351 Anderson The PI will compile a global map of crustal and uppermost mantle properties and test the effect of this structure on derived properties of the deeper mantle. He will use the digital seismic data from the Landers earthquake, including the TERRAscope data at the pode, to test and refine crustal and mantle models, and will attempt to model the new W-phase which can be thought of as a superposition of longer period high-group velocity modes or as a superposition of whispering gallery phases. Anelastic and anharmonic theory will be extended and applied to bound the temperature variation in the lower mantle, and a Monte Carlo technique will be used to correlate tomography with other geophysical and geochemical fields. ****